Support for the Participation of the University of Puerto Rico in the NSFnet

This proposal seeks to establish an NSFNET connection to the University of Puerto Rico. This is part of a comprehensive plan to improve organized research in science and technology throughout the Island which has received support from the NSF sponsored Experimental Program to Stimulate Competitive Research (EPSCoR). The prime objective is to provide a link to NSFNET for researchers at the Rio Piedras, Mayaguez, and Medical Science Campuses of the UPR, and the National Astronomy and Ionosphere Center at the Arecibo Observatory. The connection will also provide access to and promote the development of linkages with major research and academic networks on the mainland. Access to NSFNET will be eventually expanded to all researchers on the Island as well as other Caribbean institutions. The NSF funding will supply seed money to purchase gateway equipment for each node and a satellite link to the mainland connected to an appropriate NSFNET Backbone Node. The University will provide for network operations and information services for the intra-Island network - UPRENET. ***